COLLABORATIVE RESEARCH: Evolution of Plutonic Processes during Progressive Extension in a Metamorphic Core Complex: Mid-Crustal Granitic Rocks, Ruby Mountains, Nevada

9627814 Barnes Magmatic intrusion is commonly assumed to play a role in continual extension but the casual relationships between extension and intrusion are poorly understood. This project aims to establish the relationship between intrusion and deformation in deep-seated exposures in a Cordilleran metamorphic core complex by study of a sequence of intrusion emplaced in the Northern Basin Range, Nevada, a highly extended area. In this setting, exposures in the Lamoille Canyon, Northern Ruby Mountains provides a combination of excellent exposure, abundant syn extensional intrusions and a significant base of geochronological and structural data. This work involves petrologic, geochemical and isotopic study of granites to track the temporal compositional variations and to use these data to estimate the evolution's of the mid-crustal magmas during and after extensional episodes. Results are expected to help establish the changing conditions of melt generations and emplacement during crustal stretching, and to help test the role that magmatism plays in deep crustal deformation.